Deep Submergence Facility Instrumentation - 1999

9900271
Walden
This award to Woods Hole Oceanographic Institution in Massachusetts will provide funds for acquisition of a multibeam mapping system for use on Deep Submergence Vehicle Alvin and Remotely Operated Vehicles Jason and ARGO II. It will provide a shared-use instrument which is expected to receive major use in marine geological, chemical and biological research worldwide, operated as part of the National Deep Submergence Facility.
***